CSEM Scholarships

This project enhances needy students opportunity to complete a degree in a technical major. The scholarships are administered by the Mathematics, Engineering, Science Achievement (MESA) Engineering Program (MEP), whose major objectives are to recruit, retain and graduate educationally disadvantaged students pursuing technical majors. The students selected for a scholarship are expected to progress in their chosen technical discipline and are required to meet with their faculty advisor and counselor in the MEP Program to discuss progress, academic advising, and other retention efforts administered by the office.